Hawaii's Pre-Engineering Education Collaboration (PEEC)

Kapiolani Community College, University of Hawaii (UH) System proposes to develop “Hawaii’s Pre-
engineering Education Collaborative” (PEEC) that will support 155 Native Hawaiian (NH) students
(females, males, and students with disabilities) pursuing and completing baccalaureate degrees at the UH Manoa College of Engineering (UHMCOE). Since 2006, the UHMCOE has accepted a total of 117
transfer students from the four participating community colleges and UH Maui College (UH MC):
Kapiolani (50), Leeward (51), Honolulu and Windward (4 each), UH MC (8).
Goal 1: A Quality Pre-Engineering Core Curriculum: that prepares NH students for success in
progressively higher level courses in their Engineering education, effectively integrating Calculus, and
that is available online in every semester during the project and beyond.
Goal 2: A Community of Practice in Engineering: connecting NH students, mentors, and
undergraduate researchers with nurturing advising, structured cohort experiences, quality curriculum,
faculty/researchers, and community partners, through funded positions for students, increased
engagement with engineering issues and industries, and online communication strategies.
1) Faculty leaders in PEEC will review pre-engineering course success rates for NH students, and
improve existing and new courses by integrating technology, service, peer mentoring, research, and
internship opportunities, preparing NH students for Engineering degree completion and careers in Hawaii.
Activities
2) Develop one new course Engineering 100, Introduction to Engineering, and one existing course,
Physics 272, General Physics 2, for online delivery.
3) Integrate key concepts from “Introduction to Engineering Design” (ME 213), and student projects from
“Junior/Senior Engineering Design” (ME 481-482), into successive NH Summer Engineering
Experiences (SEE).
4) Develop three SEE that anchor NH cohorts for successful transfer, degree completion, and careers.
5) Increase and strengthen recruitment and engagement (service, peer mentoring, undergraduate research,
renewable energy and sustainability projects) opportunities for NH students.
6) Increase NH student engagement with each other and key stakeholders: NH scientists, community
experts, UH researchers, local industry, and federal, state, and county government partners.
1) 170 NH students complete 6 week Summer Engineering Experiences at KCC, UH MC, and UHMCOE.
Outcomes
2) 50 students complete the ASNS degree in Physical Sciences at KCC.
3) 155 students complete all of a shared 39-credit pre-engineering core curriculum and transfer.
4) 124 NH students complete UHMCOE Bachelor of Science degree (80% completion rate).
5) Improved Pre-engineering core curriculum available online to all ten UH campuses and beyond.
6) Hawaii’s PEEC curriculum, support and engagement strategies disseminated statewide and nationally.
7) Hawaii’s PEEC partnerships for sustainability established, program expanded to all UH campuses.